Workshop: Research Mentoring for Junior Faculty in Human Sciences, Tempe, Arizona

Abstract

Research Mentoring for Junior Faculty in Human Sciences

Richard Fabes

The need to develop competitive grantsmanship skills is particularly evident among junior faculty. Senior faculty from Arizona State University and Auburn University propose to bring together outstanding junior faculty from departments of Human Sciences to interact with, and learn from, senior faculty who have been successful in obtaining research funding. The objective of the workshop is to establish a mechanism whereby senior faculty provide guidance and mentoring to these junior faculty in order to increase their abilities in obtaining research support. Underrepresented young scholars in Human Science programs will be specifically targeted for participation.